The Mathematics of Rigid Body Dynamics with Contact and
Friction

9804316
Stewart

Rigid body dynamics with impact and friction is a subject which is of vital
importance for many applications (robotics, manufacturing, biodynamics,
virtual reality) yet there has been curiously little development of the
underlying theory both for computation and analysis. The principal
difficulties arise due to impulsive forces (giving discontinuous velocity
functions) and the discontinuities due to Coulomb's friction law. Notable
developments in the theory of rigid body dynamics can be found in the
work of J.-J. Moreau and M.D.P. Monteiro-Marques, who use
time-stepping methods for discretization and measure differential
inclusions for the continuous-time problem. These methods are notable in
that they directly incorporate the effects of discontinuities and impacts
directly, without needing to handle them separately from other effects.
Taking their work as a starting point, this project will advance the theory
and practice of rigid body dynamics by developing new complementarity
formulations of time-stepping methods, extending the theory of measure
differential inclusions for the continuous-time problem, and providing new
convergence results based on weak* convergence of measures.

Everyday life is full of examples of impact and friction. Walking, for
instance, involves impact at every step, and friction to prevent from
slipping. Yet what people do naturally, is very difficult for a machine to
do. It is difficult even to simulate walking, or even to simulate machines
that try to walk. Manufacturing processes involve many parts coming into
contact, touching and sliding, yet simulating these basic processes has not
been done well. There are several reasons for this: the computational
models of these processes have been inadequate, and there has been little
or no theoretical basis for evaluating the computational models. The
purpose of this grant is to improve both the computational models and to
develop the theoretical basis for rigid body dynamics. The result of this
will be better simulation software, able to properly simulate the dynamics
of robots, manufacturing machinery, and (perhaps) the way people walk.
This software will become vital manufacturing infrastructure for the 21st
century.